Coherent Radiation Generation in an Ion Channel Laser

This award supports a research effort aiming to pave the way toward a university-scale, high power X-ray or extreme ultraviolet (EUV) laser. To achieve this goal, the work will focus on the development of the first ion channel laser (ICL), which is a compact plasma-based alternative to large-scale accelerator-based free electron lasers (FELs). FELs represent the most cutting-edge light source technology available today, enabling research across many scientific fields and industrial applications, including atomic and molecular dynamics, biophysics and bio-engineering, drug design and pharmaceutical research, condensed matter and material science, and chip manufacturing and design. This technology permits coherent imaging of semiconductor devices, photonic structures, and MEMS devices with nanometer-scale resolution. Reducing the footprint of high power X-ray and EUV light sources would also permit 3D X-ray tomographic imaging of complex advanced manufacturing products and parts, such as aerospace turbine components, batteries, semiconductor packages, and composite materials, while greatly exceeding the resolution and acquisition time of conventional X-ray scanning techniques.

The current FEL technology requires kilometer-scale electron accelerators to power them, with only a few available around the world. The massive imbalance in demand and availability of user time at the FEL facilities presents an opportunity for more compact and affordable solutions. Laser plasma accelerators (LPAs) are a tabletop alternative to conventional electron accelerators that aim to provide a part of that solution, but LPAs currently struggle to deliver electron beams that meet the stringent demands on beam quality to power an FEL. The ion channel laser approach substitutes the magnetic undulator at the heart of the FEL with an ion channel, changing the operational demands on the quality of the electron beam. The constraints on energy spread — a weakness of LPAs — is shifted towards somewhat lower emittance, or better transverse beam quality, playing to the strength of LPAs. This shift of parametric demands may provide an expedient path to the realization of a tabletop FEL alternative, which would upend the light source landscape and accelerate advances across many fields of science and technology.